Numerical Simulation of Multiphase Flows in Porous Media

The Department of Mathematics at the University of Wyoming will purchase
computer equipment which will be dedicated to the support of research in
the mathematical sciences. The equipment will be used for several
research projects, including in particular: the numerical simulation of
three-phase porous-media flows, the investigation of the the scale-up
problem for such flows, the development of particle tracking schemes for
nonlinear conservation laws and of parallel adaptive multi-scale finite
element methods that can be applied to them. The projects aim
at advancing the state-of-the-art in modeling and simulation of fluid
flow in porous media such as oil reservoirs and aquifers. They will
explore new computational algorithms, both for sequential and parallel
computers, the incorporation of complex fluid physics, and eventually
will apply these methods to the study of enhanced oil recovery
techniques which are already used in the state of Wyoming as well as
elsewhere in the United States. Thus, the projects will have a large
social impact on the state of Wyoming, due to its concentration of
natural resources in gas, coal and oil reservoirs, and ultimately on the
U.S. maintaining its leadership role in applied computational science in
a field of high importance to today's world economy. On a different
scale, the projects span several disciplines and are tuned to the
University of Wyoming mission of interdisciplinary computational science
in its academic plan. Existing research links between the Departments of
Mathematics, Statistics, Chemical and Petroleum Engineering, Chemistry,
Computer Science, as well as the Institute for Enhanced Oil Recovery and
the School for Energy Resources will be stimulated, and will result in
attracting additional students in the existing programs. The project is
coupled tightly with an on-going education plan aimed at developing both
an undergraduate and a graduate curriculum in Computational Science, to
be offered through some of the above departments above as a minor. This
minor has already been approved at the College of Arts level for the
Mathematics Department where the emphasis will be on training students
in high-performance computing and its use in the study of complex
physics, with first undergraduate students expected this Fall. Other
departments and the graduate program are expected to follow gradually
over the next couple of years.